Student and Early-Career Faculty Travel and Registration Support for ICSE MAy 14-22, 2016

The grant will fund students and early-career faculty to attend the International Conference on Software Engineering (ICSE 2016), which will take place in Austin, Texas, in May of 2016. The conference is the flagship conference in the field of Software Engineering. The grant will enable attendees to exchange of ideas, form research collaborations, and keep up with, and contribute to, advances in the field of Software Engineering. It is important to the building of a competent and advanced workforce of software and system developers. The conference is an opportunity for education, training and mentoring and international community-building in the field.